CAREER: Automatically Generating Specifications to Improve Program Correctness and Maintainability

CCR-0133580
CAREER: Automatically Generating Specifications to Improve Program Correctness and Maintainability
Michael D. Ernst

Ensuring software correctness, modifying software, and many other software
engineering tasks are greatly eased by the presence of specifications that
document program behavior. Unfortunately, specifications are usually
absent, leading to problems with program understanding and maintenance.
This research extends work in automatically generating (inferring) partial
program specifications from program executions. The research goals are to
detect conditional invariants (implications) that are true only sometimes,
to scale the technology, to enable online processing, to investigate new
inference strategies, to improve usability, to evaluate via experiments and
case studies, to integrate the techniques and tools into education, and to
transfer technology to industry. The research has three broad impacts: (1)
it explains, advances, and evaluates the theory and practice of automatic
generation of program specifications; (2) it enables easier, more
effective, and broader use of specifications, by automating generation of
partial specifications and by extending their scope to likely (as opposed
to guaranteed) properties; and (3) it applies specifications to specific
program tasks via new techniques and tools for program modification,
testing, reuse, and documentation. Evaluation includes theoretical
evaluations of the accuracy of the underlying techniques, case studies of
substantial software projects, and controlled experiments to determine the
efficacy of the resulting tools.